Group Travel for the International Conference on the Physicsof Electronic and Atomic Collisions; Brighton, England; July 22-28, 1987

This proposal requests funds to help support the travel of approximately fifty U.S. scientists to attend the XVth International Conference on the Physics of Electronic and Atomic Collisions to be held in Brighton, England July 22-28, 1987. This is the main international conference in a broad area of atomic physics, and is by leading scientists from all over the world. It is important that a representative group of US scientists attend this conference, so they can learn the latest research and ideas. Previous support of travel to earlier such conferences has had a real impact on US physics.